International Workshop on Supersymmetry and Unification of Fundamental Interactions; Northeastern University; March 29 - April 1, 1993

An international workshop on the experimental and theoretical aspects of the physics associated with supersymmetry and related topics will be held at Northeastern University March 29 - April 1, 1993. Supersymmetry relates elementary particles with different amounts of spin, and is potentially the answer to the puzzle of how different phenomena in particle physics can occur at such vastly different energy scales. However, so far supersymmetry is just a conjecture, and discussion of its theoretical status and future tests will be very worthwhile.